AF: Advancing the Theory of Online Optimization and Learning within Multi-Agent Systems

Artificial intelligence increasingly relies on multiple software agents that learn and make decisions while interacting with one another in settings such as transportation, communications, automated trading, cybersecurity, robotics, and strategic planning. A major challenge in the field is designing learning methods that remain reliable even when other agents behave unpredictably all while enabling the overall system to reach effective and stable outcomes. Recent advances have shown that online learning methods with strong long-term performance guarantees can achieve both goals and have played a central role in breakthroughs such as superhuman game-playing systems. Despite this success, many fundamental questions remain about when these methods work, why they perform so well in practice, and how they can be extended to modern artificial intelligence systems built with deep neural networks. This project will develop the theoretical foundations needed to make multi-agent learning more reliable, efficient, and broadly applicable. The resulting advances will strengthen the scientific foundations of artificial intelligence, support open-source software and educational resources, train graduate and undergraduate students, engage high school students through research experiences, and broaden participation in computing through outreach activities.

This project investigates the theory of online convex optimization and learning within multi-agent systems through three interconnected research thrusts. The first develops a comprehensive understanding of learning dynamics in normal-form games by characterizing optimal regret guarantees and convergence rates under different feedback models and game structures, including both zero-sum and general-sum settings. The second explains the practical success of the Counterfactual Regret Minimization algorithm for solving extensive-form games by analyzing the roles of regret matching, alternating updates, and nonuniform averaging, and by using these insights to design improved algorithms. The third establishes new foundations for learning in games with non-concave utility functions by developing adaptive regret guarantees based on game-dependent complexity measures, reducing online learning to offline optimization when appropriate, and introducing tractable equilibrium concepts for non-concave settings. The project will produce new algorithms, mathematical analyses, open-source implementations, and empirical evaluations that advance the theory and practice of learning in multi-agent systems.